Conference on Asia-Mainland Austronesian Connections; Honolulu, Hawaii; May 1993

ABSTRACT A conference on Asia-Mainland/Austronesian Connections is planned to capitalize on the aggregation of historical/comparative linguists, archaeologists, and physical anthropologists who will be in residence at the University of Hawaii during 1992-93, and the increasing attention of recent years to the question of the origins of the ancestors of the Austronesian speaking people. The conference will augment the group already in Hawaii with others whose work relates to the possibility of an Asia-Mainland origin and who have established themselves as among the chief proponents, or the chief critics, of one or another of the major extant hypotheses as to those origins. Evidence for the various hypotheses will be presented and debated during the four-day conference. The proceedings will be published in a single issue of Oceanic Linguistics: Special Publications.